Research in quantum field theory, quantum gravity, and string theory

This award funds the research activities of Professors Eric D’Hoker, Michael Gutperle, and Per Kraus at the University of California, Los Angeles. Scattering --- the process of colliding particles and observing the outcome --- is a key tool for studying phenomena across physics, from excitations in ordinary metals to high energy particles observed in colliders. This research will uncover new mathematical structures and methods that can be applied to the scattering of particles and strings, revealing how symmetries are encoded in the scattering process. Applications range from problems involving boundaries and defects in condensed matter systems to the scattering of black holes. The project will uncover new connections between physical and mathematical structures and develop new methods for calculating scattering amplitudes, thereby promoting the national interest by promoting the progress of science in one of its most fundamental directions, specifically the discovery and understanding of new physical law. Training graduate students and postdoctoral scholars will be a central component of the project’s broader impacts. Particular emphasis in the training will be the use of AI tools in research and discovery. In addition, Professors D'Hoker, Gutperle. and Kraus will give public lectures on their research results and will produce lecture notes and a textbook on quantum field theory, accessible to particle theorists, condensed matter theorists and pure mathematicians.

On a more technical level, the research will be performed at the intersection of quantum field theory, gauge/gravity duality, string theory, black hole physics, and certain aspects of pure mathematics. The intellectual merit of the research lies in the uncovering of new relations between physical and mathematical structures, and the development of new methods to calculate scattering amplitudes. The interrelations between amplitudes in quantum field theory and string theory will be investigated and unified within the mathematical framework of generalizations of polylogarithms on higher genus Riemann surfaces, and will be used to examine the low-energy effective interactions induced by string theory on supergravity. Defects in holographic and conformal field theories will be constructed, and scattering in the presence of defects, entanglement, and generalized symmetries will be studied. A Lorentzian path integral approach to the S-matrix will be developed, with applications to asymptotic symmetries in gauge theory and gravity, and to the holographic description of asymptotically flat spacetime. These methods will also be applied to non-perturbative effects in scattering, including the scattering of quanta from near-extremal black holes. Complex saddles in path integrals will be studied, in particular the effects of instantons in time-dependent backgrounds and supersymmetric saddles of complexified IIB supergravity.